Century to Millennial-Scale Ocean and Climate Variability in the Caribbean during the last 150,000 Years from Cariaco Basin Sediments

This project will analyze planktic foraminiferal assemblage and stable isotopes over the last full glacial/interglacial cycle in ODP site 1002 from the Cariaco Basin. Time slices will be sampled at 100-year intervals to provide records of century to millenial variability during glacial maxima (Stages 2 and 4) and the last interglacial maximum (Stage 5e). Results will address millenial variation in the tropics under extreme climate states, and can be directly compared to high-latitude records from Greenland ice cores to assess large-scale linkages.